Development of a Reference Earth Model

Masters 9629271 The PIs propose to construct a seismological earth model consistent with a large body of recent seismic data spanning several orders of magnitude in frequency. The project includes two workshops with interdisciplinary participation of mineral physicists, geodynamicists and seismologists to develop the modeling strategy and agree upon inclusion of data sets, and at the end of the project to evaluate the performance of the model.